MRI: Acquisition of Digital Data Acquisition System for experiments in Nuclear Science

The acquisition and implementation of a 680-channel Digital Data
Acquisition System (DDAS) for the Segmented Germanium Array (SeGA) at
the National Superconducting Cyclotron Laboratory's (NSCL) allows the
identification of positions of interactions for gamma-rays within SeGA
detector crystals by pulse shape analysis of digitized signals. Spatial
resolution in the detectors with the DDAS implemented will be at least
by a factor of two better than that achievable with the current analog
electronics.

The SeGA photon spectrometer is a $2M instrument commissioned in 2001,
and is currently the world's largest operational highly-segmented
high-purity germanium detector array for gamma-ray spectroscopy with
fast exotic beams. SeGA is central to the research of five faculty
members, their postdocs, graduate students, and undergraduate students
at Michigan State University and available to all users of the NSCL.
Roughly half of all experiments approved by the NSCL's external Program
Advisory Committee (PAC) require SeGA for gamma-ray detection.
Participating students will be exposed to the novel and potent
applications of the state-of-the-art digital technology and will have an
opportunity to develop skills in signal processing, data analysis and
computer programming.

With the proposed DDAS, the SeGA array will be the world's first digital
photon spectrometer for fast exotic beam spectroscopy, ahead of several
other efforts currently under consideration, preserving the current
world-leading role of the NSCL's photon spectroscopy program.